Equity for Women and Minority Groups in Mathematics and Science: A Conference for Elementary, Secondary and CollegeEducators to be held July 1993 in Decorah, Iowa

This disparity in interest and achievement in mathematics and science between white male students and female and minority students is a problem that needs to be addressed. At a three day conference in July 1993, Luther College will bring together college educators from Lutheran Colleges across the United States and elementary and secondary educators from Iowa, Minnesota and Wisconsin to examine current research findings on this topic. Two hundred participants will be introduced to materials and pedagogical methods designed to remove the disparity in student interest and achievement. Presentations will focus on changing classroom activities from elementary through college instruction including teacher education. The goal is that the event will serve as a resource that will enable educators at all levels: * to understand the causes of the disparities math science achievement and interest among student populations. * to implement teaching methods and materials that remove obstacles and disincentives that can cause disparities in achievement and interest. * to motivate more female and minority-group students to pursue careers in mathematics and science. Cost share is 27%